Conference for Innovative Biological Treatment of Wastewater, July 1986 in Washington, DC

Joint support with the U.S. Environmental Protection Agency and the Army Construction Engineering Research Laboratory is provided for a conference, symposium, and workshop on innovative concepts for biological treatment of wastewaters that may be of toxic significance to the environment. The conference is planned for July of 1986 in Washington, D.C.